CAREER: Effective Grid Programming with EveryWare and G-commerce

As network performance has increased, the high-performance computing community has begun to
turn to distributed systems to meet their performance needs. Research that combines the concurrency
management techniques from parallel computing with scalable and adaptive distributed systems design has resulted in a new software architecture known as the "Computational Grid". Its main tenet is that user programs should be able to draw computational "power" from a distributed resource pool the way
electrical appliances draw electricity from a power utility: ubiquitously, seamlessly and reliably. This
project will investigate a novel approach to building software systems that implement the" Computational
Grid" model of computing and how to foster new curricular directions based on this investigation.

As vehicles for this proposed work, two research thrusts will be combined in the form of EveryWare and G-commerce to define a new programming methodology for the Grid. EveryWare is a software toolkit for building robust, high-performance distributed applications that can use existing Computational Grid
middleware as building blocks. An EveryWare program is structured as a set of application customizable
services that use the EveryWare toolkit as an adaptive server framewirk while leveraging the functionality
provided by existing Grid systems. G-commerce is a computational economic system that allows applications to purchase resources from computational suppliers. A key feature of G-commerce is that it is a macro-economic system which provably achieves economic equilibrium and market stability. By combining these two we will define a new and powerful approach to programming Grid applications.

To do so we will:
.extend and implement the EveryWare software toolkit,
.study and develop economic formulations that will form the basis of G-commerce
based resource allocation strategies,
.develop a computational exchange for implementing resource economies an
infrastructure for empirical G-commerce resource scheduling studies and,
.verify our results using non-trivial Grid applications in "live" Grid settings.

The research approach of this project is both analytical and experimental.
It will approach the problem of ensuring resource allocation stability and
equilibrium theoretically and using simulation. Then implement promising
economic formulations using the computational exchange, and test their
validity with EveryWare implimentations of Grid applications. At the same
time, EveryWare will be enhanced so that it enables the aplication programmers
and schedulers to consider computational price when making resource allocation
decisions.

EveryWare and G-commerce will also serve as the basis for new directions in
curriculum development. A course sequence will be designed that combines
distributed computing techniques, statistical analysis of load conditions, and
economic modeling methods from the literature with practical implementation
using Computational Grids. The resulting multi-disciplinary course will allow
students to compare and combine different strategies easily for the purpose of
making quantitative evaluations, which will be a primary focus of each sequence.

Practica will also be organized in which students from different Universities
will be invited to participate. Each practicum will focus on the implementation
of a chosen application using different Computational Grid infrastructures.
Students will compare different techniques and use the EveryWare toolkit and
G-commerce to combine those that are the most effective.